Workshop on "Women's Contributions to Future Directions of Ecosystem Science"; May 23-25, 1988; Pingree Park, Co.

A workshop will be conducted on future contributions of women to the field of ecosystem science. It is anticipated that ever greater numbers of qualified women will be required in political and intellectual leadership roles in ecosystem science over the coming years, primarily because the task of sustaining the world's natural resources is greater than the currently available manpower. While the number of women entering the field of ecosystem science has increased substantially over the past ten years, the number of women attaining leadership positions does not reflect this increase. It is critically important that women be cognizant of new directions in ecosystem sciences and that they be prepared to assume a greater role in contributing to scientific leadership. The goal of this workshop is to prepare women for these future leadership roles. Specific objectives are (1) to present current research in the context of future directions of ecosystem science, (2) to inform women about future research directions and funding opportunities, and (3) to foster communication among women ecologists. The organizers for this effort are excellent young scientists. The facilities of Colorado State University are more than adequate and are conducive to a useful workshop. Funding at the level requested can be enthusiastically recommended.